Evolotion of Digital Organisms

This award will support the purchase of a computer workstation for the investigator, so that he may extend the complexity as well as the length of his studies. The investigator will study processes of population change and ecological patterns via computer simulations. The simulations are produced by machine code algorithms. In the process of these studies, the investigator will also be investigating means of developing (evolving) software for massively parallel machines.